Starter Grant: Cell Division Control During Photomorphogenesis in Arabidopsis thaliana

Plants are sessile organisms that respond to changing environmental conditions, such as light quality. Research on photomorphogenesis has provided insight into light perception and light signal transduction. Yet, little is known about how light can control cell division patterns. This research will focus on identifying which signaling pathways are involved.